SBIR Phase I: OMT FreePlay

This SBIR Phase I project seeks to develop a novel software solution to treat convergence insufficiency (CI), a binocular vision disorder that affects 5% of the general population, as well as 50% of patients with post concussive syndrome. Typical symptoms of CI include double/blurry vision, headaches, dizziness, eye stress and strain, and nausea when performing tasks close to the face, such as reading. In addition, a childhood diagnosis of CI is correlated with the diagnosis of an attention disorder and difficulty in school. This project aims to build a software platform that turns any game playable in supported virtual reality (VR) headsets into a therapeutic experience that will treat CI. While current therapy protocols are generally effective in treating CI, patient engagement can be particularly low in pediatric populations especially within the home setting, due to the repetitive nature of common therapeutic activities. By allowing pediatric patients to play any VR game of their choosing, this project will increase engagement in the therapeutic intervention, and permit patients to complete schoolwork without visual symptoms sooner than with traditional therapy protocols.

The software designed during this project is unique in both function and implementation. Functionally, this software effectively breaks the elements of VR that create visual comfort for binocularly normal players. To do this for any VR game on a supported headset, this software interacts with core device parameters, transforming any delivered content into a therapeutic experience. This project will develop a fully functional prototype software capable of delivering vision therapy in this novel way. Specific goals of the project include creating software specifications, prototype development, and multiple levels of software testing. As well, this project will evaluate the current and future VR ecosystem to design software that is robust to future updates and is useable on the primary dominant commercially available VR system.